Materials Research Society International Meeting on Advanced Materials, Tokyo, Japan, May 30 - June 3, 1988

The grant is to provide funds for travel of several United States scientists to attend the MRS International Meeting on Advanced Materials (Tokyo, Japan, May 30 through June 3, 1988). This meeting is the first of its kind and will occur as a result of a new and unique collaborative interchange among materials scientists from the United States and Japan. Participation by scientists from the United States in this meeting will enhance the effectiveness of the meeting itself, will provide the most efficient conduct for transfer of scientific and technological knowledge from Japan to the United States (as well as from the United States to Japan), and will establish many contacts for future collaborative research across international boundaries. The topics of research being discussed at the meeting include: composites, rapid quenching processing, powder preparation, superconductivity, superplasticity, joining of ceramics and metals, multilayer materials, magnetic materials, biomaterials, photoresponsive polymers, biosensors, advanced ceramics, and calalytic materials. In some of these topics, the Japanese are more advanced than the United States, and collaborative research will represent a transfer of knowledge to the United States. The United States scientists involved are the leaders in their respective scientific fields.